MRI: Acquisition of a Liquid Chromatograph Electron Spray Ionization Mass Spectrometer

The Chemistry Department at Virginia Polytechnic Institute and State University will acquire a liquid chromatograph electrospray ionization mass spectrometer (LC-ESI-MS) with this award from the Major Research Instrumentation program. This will be used in a diverse body of research projects including studies of: bioactive natural products; derivatives of paclitaxel; radical ions and unimolecular rearrangements; dipeptide-borinic acids as malarial protease inhibitors; synthetic methods and medicinal chemistry; conformationally constrained peptide mimics; carbonaceous nanomaterials; dendritic sulfates as topical anti-infectives; molecular magnets; light-harvesting supramolecular assemblies; pseudorotaxanes, rotaxanes and polyrotaxanes; macromolecular synthesis; highly fluorinated Diels-Alder polyphenylenes.

Mass spectroscopy is a basic tool used by physical and biological scientists to identify and characterize materials and chemical species by accurate measurement of their mass and fragmentation patterns as they are vaporized and ionized in the instrument. Liquid chromatography is an isolation technique that separates a complex mixture into individual components before introduced to the mass spectrometer. These are important tools to be introduced into the training of young scientists. This instrument will be used hands-on by undergraduate and graduate students, and post docs in their research.